Functional Requirements for the Animation of Construction Site Operations

The primary objective of the project is to develop a competitive research proposal on "Functional Requirements for the animation of Construction Site Operations." Support of the project will assist a well trained, Hispanic engineer to improve his research capability and to complete the planning and development of a regular MRI proposal. The planning activities, if successful, will significantly enhance the potential of the investigator to compete for MRI and other research support.